Neural Control of Adrenocortical Function

While hormonal responses to stress are well known, the mechanisms of neural
control in regulating such responses are not well understood. An animal under
stress shows increased blood levels of adrenocorticotropic hormone, ACTH.
ACTH in turn stimulates steroidogenesis in the tissue of the adrenal cortex, which
generates and releases corticosterone, a steroid glucocorticoid compound.
However, there has been a long-standing problem that the patterns of ACTH
levels in the blood often do not match changes in circulating glucocorticoid levels.
Recent discoveries suggest that this steroidogenic response of the adrenal
cortex also is regulated by activity of the splanchnic nerve coming from the spinal
cord. This renewal project combines physiological and molecular approaches to
identify the mechanisms involved. Experiments will test how blocking neural
activity changes the expression of biochemical enzymes and receptor proteins
that are part of the steroidogenic pathway, how neuronal stimulation might
modulate changes by regulating adrenal blood flow, and which nerve fiber types
(preganglionic sympathetic or primary afferent fibers) mediate the observed
changes in steroidogenesis.
Results will define a novel mechanism for regulation of hormone activity in
response to stress, which will have an impact on understanding neural control
systems in general, and can be important for management of stress in contexts
such as agriculture as well as human behavior. The project also involves student
training in state-of-the-art technology in a very productive laboratory.